Postdoctoral Research Fellowship in Biological Informatics for FY 1999

This action funds an NSF Research Postdoctoral Research Fellowship in Biological Informatics for 1999.

The research and training plan is in the area of biophysics and is entitled "Data mining recurrent 3D interaction for protein structure prediction." Data mining of the Protein Data Bank (PDB) is being used to identify recurrent non-local interactions (salt bridges, hydrogen bonds, and hydrophobic contacts) in three dimensions (3D) between two segments of structure greater than 15 amino acids apart. The resulting databases of 3D interactions will be used for protein structure prediction.